Low Latitude Western Boundary Current in the Pacific

0095906/McCreary

This project will determine the role played by low-latitude boundary
currents in seasonal to decadal variability of the tropical Pacific.
First, historical observational and model data will be analyzed to
obtain descriptions of the mean and varying structure of the upper and
intermediate-depth circulation in the tropical western Pacific. From
these, the oceanic processes involved in seasonal to decadal variability
of the region will be diagnosed and hypotheses about dynamical role of
low-latitude western boundary currents will be developed. Ideas about
low-latitude western boundary current dynamics will be tested with
numerical models of the tropical Pacific.